Connection to SURAnet

The University of Florida will be connected to the Suranet by a 56 kilobit per second dedicated communication line. The connection will be implemented by the Suranet management using the TCP/IP communication protocol suite. This will provide the University of Florida with a medium speed connection to the NSF Backbone network allowing potential access to all six supercomputer centers supported by this foundation. It will also provide an interconnection to other researchers nationwide which will greatly increase the ability of dispersed scientific researchers to collaborate on large, multidiscipline research projects.